Are Oligodendrocytes Destroyed by L-Pyroglutamate or Thyrotropin Releasing Hormone

Oligodendrocytes play a supportive role for neurons within the central nervous system. These cells appear to be sensitive to neurotoxic agents when challenged in vivo, showing abnormal changes in intracellular organelles-mitochondria, Golgi and endoplasmic reticulum-that play a significant role in normal metabolic functions of these cells. The substances of interest here are L-pyroglutamic acid, the internal amide of L-glutamic acid; and the the tripeptide thyrotrop in releasing hormone ıpGlu-His-Pro-NH2! (Rieke, et al., 1984). Although these agents appear to induce pathology in oligodendrocytes, it remains uncertain whether oligodendrocytes are destroyed by such agents. Oligodendrocytes can be raised in vitro in cultures where they are the principal cell present. Cultures will be exposed to the test substances for periods up to 20 days. After exposure to the test substance the tissue will be fixed and processed for electron microscopy. It will be examined to determine the test substance-induced pathology and whether oligodendrocytes can recover following exposure to these substances. These experiments will provide the preliminary data needed to pinpoint the intracellular site of activity of these agents and establish their use as probes for nerve cell activity in culture.